Adaptive Control of Unavoidable Hazardous Releases

The purpose of this project is to develop a computational procedure for the adaptive control of hazardous releases, either of water or toxic substances. In particular, the control strategy is aimed at deliberate releases from man-made storage or process facilities that are deemed unavoidable because alternative actions may lead to more severe catastrophic results. The procedure consists of combining two-dimensional transient models that simulate the dynamics of the release and its subsequent fate in the environment and an adaptive control scheme, which monitors the current state of the released matter and the ambient conditions. Real-time feedback is sent to the control mechanism, which in turn develops an optimum release strategy that minimizes a predetermined performance index. The simulation models that are employed for the direct solution of the release spreading have been repeatedly verified for their accuracy and reliability and standard optimization techniques have shown that control of water and toxic releases is possible. The novelty of the proposed research lies in an alternative formulation of the control problem that avoids iterative simulations of the direct problem, which, due to lengthy computations, hinder the real-time implementation of the procedure. In contrast, by solution of the adjoint equation for a variety of evolution problems described by an enlarging and deforming domain, it is possible to optimize a given performance index without repeated simulations. The result is an efficient and practical procedure for unavoidable hazardous releases that can minimize their environmental impact.